A Computer-Based Psychology Laboratory for Studying Auditory Processes

The undergraduate computer facility is being equipped to improve laboratory experiences and enhance independent undergraduate research. Student interested in perceptual phenomena were previously limited to investigating visual phenomena. With the acquisition of new equipment, students are now able to investigate a wide range of auditory phenomena as well, including voice identification, speech and music analysis, and pitch discrimination. The equipment is a combination of a McIntosh computer, Farallon's MacRecorder and MacLaboratory. Students can store sound stimuli in digitized form within the computer and then analyze or manipulate the sounds. They can conduct auditory discrimination experiments as well as a variety of other cognitive experiments. The equipment is being used in a number of courses, but predominantly in the sensation and perception course, the experimental methodology course, and independent undergraduate research. Demonstrations and auditory experiments resulting from this project will have a large pedagogical impact on other institutions which lack sophisticated audition laboratories. The college will contribute an amount equal to the award.